Our Nutritional Environment

The Indiana State University will initiate a three-week, residential Young Scholars project in Life Science for 24 students entering grades 11 and 12. The theme of this project is "Our Nutritional Environment." Each participant will select a problem, conduct a literature survey, develop an experimental design, collect and analyze data, prepare a scientific manuscript, and give an oral presentation of the research. The philosophical and sociological implications of science in general and this type of research in specific will be presented as continuous and interwoven components of the project. Guest lecturers, research scientists and faculty will introduce the students to a wide variety of careers in biology.